Acquisition of a Cluster Computing Facility for Modeling and Observations at SIO

0116643
Cayan
This Major Research Instrumentation award to University of California San Diego's Scripps Institution of Oceanography will provide support for acquisition of a cluster computer system for use by the new Center for Observations, Modeling, and Prediction at Scripps (COMPAS). Research use of the system will emphasize regional to global scale ocean/atmosphere modeling, fine-scale modeling of coastal and wave processes, process-oriented ocean modeling and ocean state estimation, and graduate education, to which 25% of the computational time will be allocated. The system will be housed at Scripps Institution of Oceanography; technical support and archival storage will be provided by the San Diego Supercomputer Center. UCSD will contribute 30% of the cost of this project from non-federal funds.
***